SCI: CyberInfrastructure for Science & Engineering

This agreement with Oak Ridge National Laboratory recognizes the important role the Awardee will play in building, delivering and supporting cyberinfrastructure to meet the needs of the science and engineering research and education community."